Dynamic Failure Mode Selection in Rate Sensitive Metal Alloys

The purpose of this research is to study the physical phenomena controlling the dynamic constitutive and failure behavior of rate sensitive metals alloys. A combined axial/torsional split Hopkinson bar will be developed and used to investigate the thermomechanical constitutive and localization behavior of such alloys when they are subjected to multi-axial dynamic loading. Emphasis will be placed on examining the phenomenon of failure mode transition (dynamic cracking vs. dynamic shear banding) associated with asymmetric impact loading of pre-notched plate specimens. A variety of high speed optical and thermographic diagnostic techniques will be used simultaneously to record mechanical and temperature fields during deformation, localization and failure.